Development of Electron Microscopy Tomography

Electron microscope tomography (EMT) is the method of computational reconstruction of the 3-D electron density of an ultrastructural specimen for combined projections around a tilt axis. The investigators have emphasized analysis of stained plastic-embedded sections tilted around a single axis, representing a logical extension of much of conventional biological transmission electron microscopy. Performing EMT on thick sections is an important application of this method, especially when dealing with the large-scale organization of cellular organelles. The investigators will continue to analyze thick sections imaged with inelastically-scattered electrons and to examine mass-loss (specimen-damage) by electron spectroscopy. The group will also focus its efforts on volume rendering to develop a consensus structure of the organization of DNA transcription in vivo, and it develop techniques for preparations of tomographic analysis.